Topics in Computing

The PI will examine algorithm design issues in the areas of parallel computation, pattern matching, coordinated robot arm motion and nonlinear electrical circuit theory. In particular: 1) the parallelization of tree-structured computations and their applications; 2) an investigation of mesh architecture with a primary focus on developing methods for translating PRAM algorithms to meshes; 3) developing efficient algorithms for various forms of convolutions, for constructing suffix trees of trees, and for pattern matching in trees; 4) the development of efficient algorithms for coordinated motion of robot arms; and 5) the design of polynomial-time algorithms for the steady-state and transient analysis of several classes of nonlinear electrical circuits.